Research Experiences for Undergraduates: Locomotor Pattern Variations in Reptilian Quadrupeds

Berry College will conduct an interesting research project, attractive for undergraduate students of biology and geology alike. The field of ichnology (the study of trackways and footprints) has enjoyed a dramatic resurgence. This research on locomotor patterns blends the study of modern and ancient reptilian quadrupeds in an attempt to improve our understanding of trackmaking processes, including limb kinematics, vertebrate morphology, and the effects of substrate texture and levels of hydration on footprint form and step cycle. By establishing an empirical database of living forms, it will give added credence to the examination and interpretations of fossil trackways.